Instructor's Reference Manual for Discovery Chemistry

An Instructor's Reference Manual will be prepared that will provide information necessary for the efficient adoption of our Discovery Program. This curriculum addresses the concern for teaching students content in the laboratory while still focusing on the process of discovery. A four-course introductory sequence is founded on laboratory exercises in which the students work individually and cooperatively to discover for themselves many of the basic principles of modern chemistry. The essence of the approach is to have students "Discover" the basic concepts by participating directly in the process that is chemistry. Thirty discovery experiments have been integrated into the curriculum. This project will produce a manual that documents instructional methodologies that have been successful with a variety of different discovery exercises drawn from the program, and that also includes an extensive information base for each of the discovery exercises.